Seeing: The Interaction of Physiology, Culture, and Technology

9725887 McLean PROJECT: Seeing: The Interaction of Physiology, Culture, and The Exploratorium will develop a 6000 sq. f.t exhibit Seeing: The Interaction of Physiology, Culture, and Technology . As the first exhibit and program development project of their multiyear initiative "Refocusing on the Floor," this permanent exhibit will consist of approximately 60 new and redesigned exhibits organized into six sections: Seeing Central, Light and Images, Process of Seeing, Seeing Things Differently, Extending Our Vision, and Deconstructing What We See. Visitors will develop their skills at seeing, noticing, and visual thinking, will become more conscious of visual information in daily life, be exposed to current research on vision and visual cognition, be given opportunities to investigate the social and cultural influences on seeing, and be lead to the realization that seeing, interpreting, and understanding visual information are basic to the conduct of science. New partnerships will be developed with community-based organizations that will promote new audiences for the Exploratorium as well as enhance the viewpoints of the participating staff members. The activities will address the National Science Standards in terms of the process skills that are identified and will reintroduce visual thinking skills into the activities linking the exhibit with the formal education's curriculum. Additional workshops and professional dissemination activities will be included in the overall project.